Undulator Beam Line Instrumentation for Real-Time X-ray Studies

This undulator beamline will be developed, instrumentated, and operated at the Advanced Photon Source (APS) under the auspices of the Michigan/AT&T Collaborative Access Team (MATT-CAT). The APS represents a very significant step forward for the future of materials research: for the first time it will be possible to carry out time-resolved studies of materials under real dynamic conditions. MATT-CAT is conceived as a center for real-time x-ray studies which will operate as a joint university-industry initiative bringing together faculty and students at the University of Michigan, and research staff at AT&T Bell Laboratories, to focus on the kinetic behavior of materials. MATT-CAT's goal is to establish a center of excellence devoted to the structural kinetics of materials which will benefit from the interaction of physicists, chemists, materials scientists and engineers. To accommodate this goal, two fully instrumented beam lines will be developed, one will have an undulator source, and the other a bending magnet. The undulator beam line is designed to achieve high resolution and will consist of a back-reflection monochromator, situated in the rear hutch, with the monochromated beam transported to a forward hutch. Here, high-resolution analyzers and fast array detectors currently under development will be available for time- resolved scattering studies. The extremely high brightness, collimation, and stability of the undulator beam will be exploited for new kinds of coherent spectroscopic measurements of non-hydrodynamic modes in solids and complex fluids. This beam line will be available to the MATT-CAT members 75-80% of the time, with the remaining time allocated to general users. Technical staff will be employed in the construction of the beam lines, the day-to-day operation and upkeep of the instruments, and will assist users.